Energy-Efficient Data Access for Pervasive Computing

Energy-efficiency is vital for pervasive computing. Small, mobile
computers such as handhelds are battery powered. They must carefully
manage their limited energy supply in order to run demanding
applications for long periods of time. Pervasive computers are also
increasingly well-connected to the Internet by wireless networks.
However, connectivity is costly: communication is a large and growing
portion of their power budgets. Current data access mechanisms
exacerbate the problem---they substantially increase the energy cost
of communication because they are optimized for performance, not
energy-efficiency.

This research investigates how to build energy-efficient distributed
file systems for pervasive computing. The first step is building
measurement infrastructure that precisely captures the communication,
storage, and computation costs of data access. The next step is
characterizing the energy usage of existing distributed file systems
and identifying characteristics that increase energy-efficiency. The
final step is building a new, energy-efficient file system that
enables pervasive computers to maintain connectivity without
compromising battery lifetime. This research thus allows pervasive
computing devices to be incorporated into everyday activities. For
example, all-day battery life is essential for projects that deeply
integrate handheld computers into classroom activity.